MGR Honorable Mention: Ruth Lanier

This special award will give Ph.D. student Ruth Lanier additional flexibility in pursuing her graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.